Shipboard Technician Support

0074351
Freitag
This award to University of Rhode Island provides shipboard technical support, shore-based support, as well as maintenance and calibration of shared-use scientific instrumentation, for researchers using R/V Endeavor, a research vessel operated by the university's Graduate School of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. The award also provides support for research using a portable undulating tow vehicle for physical, chemical and biological measurements, which will be used in CY2000 on another UNOLS vessel, operated by URI personnel. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of oceanographic research studies, primarily in the western North Atlantic Ocean, beginning in 2000.
***